Mathematical Sciences: Modern Interdisciplinary University Statistics Education

The Board on Mathematical Sciences (BMS), National Research Council (NRC) through its Committee on Applied and Theoretical Statistics (CATS) will convene two 1-1/2 day symposia on the topic Modern Interdisciplinary University Statistics Education, one at the National Academy of Sciences in Washington, DC, and one at the Beckman Center in Irvine, CA. The topics of discussion at these symposia will be what changes in statistics education are needed to: (1) incorporate interdisciplinary training into upper-undergraduate, graduate, and postdoctoral statistics programs, (2) bring upper-undergraduate and graduate statistics curricula up to date, and (3) improve apprenticing of statistics graduate and postdoctoral students and appropriately reward faculty mentors. Proceedings based upon the presentations and discussions at both symposia will be produced and disseminated after the second symposium.